Collaborative Research: Annual Cycles of Nitrate and Phytoplankton Stocks using Optics at the North Pole Environmental Observatory

The investigators will measure temporal variations in physical properties (conductivity, temperature), nitrate concentration, pigment biomass and spectral irradiance at the North Pole Environmental Observatory (NPEO) during 2004-2006. Data will be acquired from moored sensors at two levels: 50 m (base of the euphotic zone) and 100-120 m (disphotic zone). There is very little baseline biological data from the central Arctic Ocean, and this research will provide an important contribution.